Large-Scale Analysis of Filaments' Magnetic Evolution from Curated Ground-Based Observations

Filaments are prominent structures in the Sun’s chromosphere, consisting of cool, dense plasma suspended in the hot solar corona by magnetic fields. Understanding their formation, progression, and disappearance is essential, as their eruptions often lead to coronal mass ejections, which are key drivers of space weather. Currently, there are no operational filament-detection or filament-tracking algorithms that provide the community with large and up-to-date datasets. Using Machine Learning, this proposal will produce a large-scale system capable of accurately and reliably tracking filaments and will provide the solar community with potentially millions of instances of tracked filaments. The proposal will benefit society by increasing our understanding of space-weather events driven by filament eruptions.

This project aims to build robust machine learning tools for identifying corrupt observations and for tracking solar filaments. The team has developed a model that they will modify and expand to detect corrupt incidences in over a million H-alpha and magnetogram observations. Convolution Neural Networks and Variational AutoEncoders will be used for anomaly detection and the resulting algorithm will be used to train a reliable filament tracking system. Through the efforts of data cleaning and filament tracking, the team will aim to recover subtle filament dynamics from curated data and significantly enhance the catalog of filament physical and magnetic properties. The project will deliver an open-source tracking software for general use by the solar community.